NeTS: Small: The Impact of Message Passing Complexity on QoS Provisioning in Stochastic Wireless Networks

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111- 5).

Abstract (NSF 0917087):

Wireless networks operate under hostile conditions and often exhibit multi-scale stochastic dynamics. In such dynamic environments, network algorithms for quality of services (QoS) provisioning hinge heavily on state information exchange, and network functions are intimately tied with the complexity of message passing. This project aims to pursue a systematic characterization of the impact of message passing complexity, a fundamental yet under explored area. Under such a common theme, the proposed research is organized into two coordinated thrusts.

1) Thrust I focuses on the impact of message passing complexity on effective throughput and delay performance of wireless scheduling. Novel vacation models are developed to account for signaling complexity, and effective throughput is studied using the fluid approach and delay analysis is carried out by diffusion approximation.

2) In Thrust II, noisy feedback models are devised to account for message passing complexity in distributed rate control algorithms using various optimization methods, and stochastic stability is characterized accordingly. The framework here provides a platform to compare different rate control algorithms in terms of complexity and robustness.

This project will significantly advance the understanding of the impact of message passing complexity on QoS provisioning in stochastic wireless networks. The study on open problems, such as delay performance of wireless scheduling, will open up new research directions in this area. Undergraduate students will get involved to carry out network performance measurements in this project.